PLANNING GRANT: Software Engineering Research Center in West Virginia

ABSTRACT EEC-9815336 MILI This planning award funds West Virginia University to study the feasibility and viability of joining the Purdue University Industry/University Cooperative Research Center (I/UCRC) for Software Engineering. Six letters of interest in the West Virginia University research site proposal are included. Experimental Programs to Stimulate Competitive Research (EPSCoR) has cited the research site as one of its priorities.